Composition and Clustering of Primordial Gas

ABSTRACT 9320045 Hogan This grant will support research on two projects in observational cosmology. As a test of hot big bang cosmology, the PI and a graduate student propose to measure the cosmic abundance of deuterium in high redshift QSO absorption clouds, using high-resolution spectra (about 10- 20 km/sec) of five QSO's with high column density hydrogen absorbers known to be optically thick in the Lyman continuum. Using fits to a number of Lyman series absorption lines in each absorption system they aim to obtain D/H in the absorbing clouds with sufficient accuracy for a rigorous test of cosmological theory, a test of the universal character of the deuterium abundance, and a measurement of the abundance in a relatively pristine environment where the universe is much younger. The PI and another graduate student propose to detect and catalogue line-emitting galaxies near damped QSO absorbers, using narrow-band imaging of damped QSO absorber and high-redshift protogalaxies, which will be used to constrain theories of cosmic structure formation. Data for both projects will be gathered primarily at the new 3.5M telescope at the Apache Point Observatory. ***